Theoretical Physics

Research in theoretical physics will include (1) analyses of elementary particle and other physical systems using the "lattice" approximation, in which the continuum of space is replaced by a discrete lattice of points, (2) studies of chaotic behavior, and (3) analyses of physical systems whose descriptive equations can actually be solved exactly. The lattice approach enables one to study situations in which, for example, the strong nuclear force is important and cannot be treated as a small perturbation. Chaotic behavior is widespread in nature and little understood. Study of systems whose equations can be solved exactly give one insight into physical systems generally. Thus, all of these studies are important.